Magnetic Bearing and Anti-Reflection Coatings for Measurements of the Polarization of the Cosmic Microwave Background Radiation

This project is for the development of two technologies: (1) a magnetic bearing; and (2) broad-band, cryogenic, anti-reflection coatings, both of which could be useful for high sensitivity measurements of the polarization of the cosmic microwave background radiation. The technology will be applicable to a broad range of astrophysical measurements, and the technology development will involve the education of graduate students in advanced instrumentation techniques.